EU-US 08 Workshop

This award supports US participation in the EU-US Workshop on Networked Information and Control Systems, June 16th, 2008, at KTH, Stockholm, Sweden. The purpose of the meeting is to bring together European and US researchers from academia and industry to discuss research challenges and emerging industrial trends for next generation networked embedded systems. The workshop considers three themes: mobility and autonomy in cyber-physical systems; robustness and security of large-scale infrastructures; and wireless sensing and control for embedded networks